Diapycnal Mixing in a Partially Stratified Estuary

This grant is to support a field program to study the processes controlling mixing in the Chesapeake Bay. Short period, small-scale processes control the fluxes of momentum, heat, salt, and nutrients in the Bay. Itsweire will use a new profiling and microstructure techniques to measure the turbulent events and calculate their contribution to the flux problem.